Microcomputer-Assisted Laboratory Stations for UndergraduatePhysiology Courses.

Five highly versatile microcomputer-assisted laboratory stations being used in nine different courses within three academic departments to modernize undergraduate instruction in physiology. The instrumentation includes Apple II GS microcomputers, Apple Imagewriter II printers, Harvard/SRI stimulators, and six different physiological data acquisition systems for each station. Stations thus equipped collect, display and print the data from a variety of physiological experiments including those in spirometry, cardiography, muscle contraction, reflex function, skin responses, and biofeedback. The use of these microcomputer-aided instruments permits a wide range of laboratory activities at approximately 60% of the cost of traditional recording devices. In addition, relatively inexpensive programs can be added for simulations and autotutorials dealing with such specific processes as intermediary metabolism, cardiovascular fitness, nutrition and renal function. The completed stations providing the students with a unique opportunity to further their understanding of the methods of obtaining experimental data. It also allows them to develop skills involved in the analysis and interpretation of such data. Finally, it exposes them to wide variety of experiences at a reasonable cost.